Application of Stochastic Theories and 3D-PTV Experiments to Study Anomalous Dispersion

0073262
Cushman

The plan is to conduct 3D particle tracking velocimetry experiments in porous media with imbedded heterogeneities by using a world-class apparatus to extend previous work to study velocity fields and dispersion in homogeneous porous media to simple heterogeneous systems with varied sizes and shapes of particles. The exeriments to observe two-particle correlations are being conducted at a world-class facility in Italy by a post-doc. The PI is working out a strategy to develop (non-local) dispersion theories applicable to heterogeneous media. This funding is to augment and sustain work at a facility that would otherwise be closed down soon.